Physics: Theory of Elementary Particles

The theoretical physics group at the University of California Berkeley (S. Mandelstam, B. Zumino, M. Gallard, L. Hall and O. Alvarez) will carry out research over a broad area of particle theory. The topics include the random triangulation approach to 2-D gravity and its application to non-critical strings, applications of quantum groups to superstring theory, string perturbation expansions with space- time supersymmetry, new inflationary cosmology scenarios.